Workshops on PC Integrated Engineering Workstations for Science and Engineering Faculty

9353922 Mastascusa Two week-long workshops are being offered for 40 engineering and science faculty on the use of PC-based engineering workstations. Participants develop experiments and class material using PC-based workstations, GPIB instruments, and multimedia authoring systems. Workshop participants will join a network of faculty interested in course and laboratory development, and the workshop staff will encourage and assist in having results presented at engineering education conferences. ***